Acquisition and Development of Color Stimulus Presentation and Data Analysis System for Visual Neurophysiology Lab

The instrumentation and software development requested will enable a sophisticated color stimulus presentation system to be coupled with neurophysiological data collection and analysis in a primate vision research laboratory. The system will be developed by an established group of investigators experienced in primate vision research. It will allow the group to include an assessment of color in their on-going studies of the structural and functional substrates of form, movement, and luminance processing in primate visual cortex. The software and other details of the system will be made freely available and development of the system in conjunction with actual experiments will ensure "user friendly" operation. Other vision researchers are expected to find the system readily applicable to their investigations.